An Interdisciplinary Research/Teaching Laboratory for the Long-Term Measurement of Global Change: Instrument Development and Acquisiton

The investigator proposes an interdisciplinary (i.e., aeronomy, atmospheric chemistry, environmental engineering, etc.) research/teaching laboratory to be developed at the University of Michigan for long-term, experimental studies of global change. This laboratory has two major goals: (1) to provide a long-term data base of comprehensive surface, lower atmosphere, and upper atmosphere parameters measured from a single location, providing a unique "cross sectional" and interdisciplinary record of the changing environment, and (2) to provide a teaching laboratory for both graduate and undergraduate levels, enabling important hands-on experiences in global change research.***